Postdoctoral Fellowship: MSPRF: Definable Combinatorics in Descriptive Set Theory, Computability Theory, and Beyond

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Felix Weilacher is “Definable Combinatorics in Descriptive Set Theory, Computability Theory, and Beyond”. The host institution for the fellowship is the University of California-Berkeley and the sponsoring scientist is Andrew Marks.